Subdivision Surface Based One-Piece Representation

DMS-0310645
Fuhua (Frank) Cheng

This is a CARGO incubation award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02155/nsf02155.htm.
This grant provides funding for the development of necessary
mathematical theories and geometric algorithms to support
subdivision surface based one-piece representation, i.e.,
representing the final object in a design process with only
one subdivision surface, no matter how complicated the object's
topology or shape. Hence, the number of parts in the final
representation is always the minimum: one. The research requires
studies in three areas: representation refinement, representation
conversion and representation joining. The aim for representation
refinement is to develop new vertex generation schemes and
topological structures that allow local refinement of a subdivision
surface's control mesh while preserving the crack-free property of
the refining process. The aim for representation conversion is to
develop conversion algorithms for subdivision surfaces of different
type or subdivision surfaces of the same type but whose control
meshes are of different topology. The aim for representation
joining is to develop direct and indirect joining techniques that
can be iteratively applied to join different component surfaces of
an object into a single surface.

If successful, the results of this research will significantly
shorten the construction process of a free-from surface because
one-piece representation makes Boolean operations more efficient
and, consequently, increase the productivity of a design engineer.
Actually, in addition to their roles in one-piece representation,
the results in the first area will also significantly improve the
current art of subdivision surface theory. They would not only
include current refinement techniques as special cases, but also
provide more powerful mesh refining rules which allow both local
and adaptive refinement of subdivision surfaces. The results in
the second area will also make it possible for a CAD/CAM system to
include subdivision surfaces as a new and yet more general free-form
surface modeling tool because B-splines and NURBS are special cases
of subdivision surfaces.